Inflation and the Measurement and Impact of Fiscal Variables

Budget surpluses, deficits and underlying fiscal variables in the U.S. and other developed industrial nations are modified and supplemented to reflect changes in the real value of government financial assets and liabilities. This project develops complete and detailed inflation corrections to government outlays and receipts so that adjusted budget deficits correspond to increases in the real market value of net government debt. During the two-year period of the original grant, the project assembled quarterly data to complement earlier annual time series, refined the measurement methodology, especially with respect to the construction of par-to-market indexes, and updated from 1981 to 1984, with 1985 nearly complete. Under the present grant the investigators will develop all the series for deficits and balance sheets through 1986 and 1987 as data becomes available. In HOW REAL IS THE FEDERAL DEFICIT (1986) the investigator presented some striking results obtained from analyzing these data. For example, inflation-adjusted or real federal deficits as a percentage of GNP were sharply positively related to increases in investment as well as in consumption. Over the period of estimation, 1962 to 1984, large government deficits appear to have been "crowding in" rather than as is now believed by most economists crowding out savings and investment. This book has been hailed for developing sounder and more economically relevant measures of government budgets, but the provocative results are vulnerable to the criticism that they may be spurious reflections of real causative variables which have been ignored and excluded. This grant permits the investigator to specify and estimate structural equations which would show whether or not this criticism is valid. More specifically, parameters of single structural equations and reduced forms relating adjusted budgets and their various components to real GNP, unemployment, inflation, investment, consumption and the balance of payments are estimated. Relations involving the adjusted measures are introduced into major macroeconometric models. Estimated parameters, simulations and predictions, utilizing original and adjusted variables and relations, are compared. Adjusted variables for government budgets and balance sheets are also related to the Total Incomes System of Accounts (TISA), focussing on nonmarket components of consumption and investment in financial, tangible and human capital by government and households as well as by business.